A Multidisciplinary Analysis of Shelf-Derived Carbon Dispersal Within the Arctic Basins, as Sampled by Submarine

9423349 Whitledge Dissolved organic carbon (DOC) is the major reservoir of organic carbon in the Arctic Ocean, and as such this reservoir may also serve as an important sink for atmospheric carbon dioxide. Characterization of the processes controlling the concentrations and fates of DOC is therefore critical for gaining a quantitative understanding of the Arctic Ocean carbon cycle. During a U.S. Navy submarine cruise in March-May 1995 along the shelf breaks of the Beaufort, Chukchi, East Siberian, and Laptev Seas, approximately 1,000 samples will be collected and analyzed for concentrations of nutrients, DOC, and dissolved inorganic carbon (DIC). Approximately 100 water samples will be analyzed for dissolved oxygen, alkalinity, and chlorophyll/phaeopigments during the cruise track. These data will be used to determine the sources of DOC to the various regions, the rates of microbial remineralization processes, and the coupling between nitrogen and carbon cycling.